Information Processing in Dynamic Decision Tasks

The principal investigator proposes to develop a task environment for a series of experiments designed to investigate information processing in dynamic decision tasks. These are tasks in which the responses to one decision influence the information available at the time of a later decision. Two different studies are planned. The first will use one or two response modes during an initial session and will either the same or different responses in the second (transfer) session. The second experiment will evaluate changes in strategies as a result of changes in feedback about the system's outcomes.